Basic Science Plan for Active Tectonics

This actions provides funding for printing of the Active Tectonics science plan, which is an outgrowth of the planning committee for Active Tectonics Initiative, and associated cost.